Academic Travel for ADCHEM 2000

International Symposium on Advanced Control of Chemical Processes (ADCHEM), organized under the auspices of the International Federation of Automatic Control (IFAC), is a continuing series of international meetings which have traditionally focused on advances in methods for control and estimation and are part of a three year rotation of IFAC meetings in process control.

ADCHEM 2000, to be held in Pisa, Italy, aims to bring together researchers and developers of new methodologies in the area of process control as well as users of these techniques. ADCHEM 2000 will focus the development and application in six subareas:
- Modeling and Simulation
- Model Based Control
- Realtime Optimization
- Process and Control Monitoring
- Process Identification